Sparsity Preserving Algorithms for Rank Structured Systems

This project focuses on developing reliable and efficient
computational methods for solving equations obtained from
discretization of elliptic partial differential equations that arise
in engineering and science. The methods are expected to be of direct
use in the fast solution of various problems in electrostatics and
materials engineering and also to have utility in accelerating
computations associated with numerical methods for time dependent
simulations. The project will extend a class of highly stable
orthogonal methods based on sparse banded representations to equations
with more complicated structures than have been considered before in
the context of this class of algorithms. The stability and efficiency
of the methods will be analyzed and an efficient software
implementation of all the methods will be developed and released.

The project involves the development of fast direct algorithms for
elliptic partial differential equations. The methods are based on
Givens-weight techniques that exploit rank structure in order to limit
fill-in when computing a QR or LQ factorization. There are four main
components to the project: The extension of orthogonal Givens-weight
algorithms to strongly admissible rank structures, the development of
efficient block operations acting on blocks that are obtained from
discretization of particular subdomains, the analysis of the methods
for numerical stability and complexity, and the development of an
efficient software library implementing the algorithms. The
overarching goal is to bridge a gap between the more flexible classes
of methods that have uncertain numerical stability and the highly
stable orthogonal methods that are applicable only to problems with a
restricted weakly admissible rank structure. The techniques used are
expected to lead to algorithms with linear or near-linear complexity,
good practical efficiency, and provable backward stability.